CARGO: Approximation and Simulation of Neurons

DMS-0138065
Binhai Zhu

In this project, we investigate a three-dimensional geometric
problem that originated in neural maps, which model the
motions of neurons so as to understand the human behavior.
The problem is defined as follows: given a neuron, which is
modeled as a polyhedron, compute a minimum set of (minimal)
cylindrical segments to approximate the neuron. We plan to
design a good approximation for this problem (i.e., the error
between the cylindrical segments and the neuron is small).
We also plan to have a good implementation, build a prototype
system, and perform extensive empirical studies. Practically,
a solution to this problem will have a great impact in
computational biology. Theoretically, this problem generalizes
the problem of finding a single line stabbing a set of balls
in 3D (and has never been seriously studied to the best of our knowledge).

Modeling the motions of human neurons is an important problem
in biology, especially in understanding human behavior under
different circumstances. To do that, we first need to model
a single neuron, which is very much like a tree-shaped
polyhedron, using a set of cylindrical segments. Different
cylindrical segments of different radii have different
functionality, so the union of the cylindrical segments
should be as close to the neuron as possible. In practice
this problem is estimated manually by technicians in
the computational biology community. The process is
time-consuming and error-prone. Our research will focus
on automating this process with computers and a successful
solution will have deep influence in the computational
biology community. We will train two graduate students
throughout this project.